Special Minority Award (Physics)

This award will provide a stipend for a minority graduate student, Mr. Pablo Saez. He was an "honorable mention" two years ago in the Minority Graduate Fellowship competition. The Physics Division is providing equivalent to such a fellowship as part of its plan to encourage minority students in physics.